HCC-Small:Interactive Auditory Displays

Interactive Auditory Displays

PI: Ming C. Lin
Co-PIs: Gary Bishop and Dinesh Manocha
Department of Computer Science
University of North Carolina at Chapel Hill

An auditory display utilizes sound to communicate information to a user and offers an alternative means of visualization. By harnessing the sense of hearing, audio rendering can further enhance a user's experience in a multimodal virtual world. Acoustic realism has many areas of applicability including virtual reality, computer gaming, training systems, desktop interfaces, education, and scientific visualization.

We are conducting an ambitious research program to develop interactive auditory displays. Our goal is to develop new algorithms for physics-based sound synthesis and sound propagation for interactive applications including computer gaming, training systems, and enabling technologies. The approach involves the fusion of both geometry (for high frequencies) and physics (for low frequencies) to model sound propagation and the development of techniques for acoustic levels of detail. To this end we are developing efficient numerical algorithms based on domain decomposition and exploiting modern architecture features to further accelerate the overall performance. We are also evaluating the performance of our algorithms on different applications. In addition to acoustic simulation, our research is generating a fundamental scientific foundation and interactive performance methods for solving wave/sound propagation problems in highly complex domains that span many scientific and engineering disciplines.